Homotopy theory, loop spaces,group cohomology, and configuration spaces

Frederick R. Cohen
DMS-0072173

The projects outlined in this proposal are directed toward
the interplay between homotopy theory, group theory, and the
topology of function spaces. Artin's braid group plays a
central role. The main projects are as follows: (1)
continuation of a program to finish Barratt's finite exponent
conjecture, (2) computations of the group cohomology for certain discrete groups with varying choices of representations,
(3) a further investigation of the connections between the
cohomology of function spaces, group cohomology, as well
as the connections with the topology of function spaces,
configuration spaces, and hyperplane arrangements,
(4) an analysis of the overlap of properties of homotopy
groups with other structures such as the Lie algebra attached
to the descending central series for Artin's pure braid group,
and the Lie algebra obtained from the higher homotopy groups
of configuration spaces, and (5) a detailed analysis of
certain groups of coalgebra morphisms as well as their
connections to braid groups, and homotopy theory.

The main goals of the projects here involve geometry of
circles moving through space. These circles can be thought
of as the motions of planetary objects in orbit around each
other. The interplay between the geometry of these orbits
occurs in mathematics as well as in mathematical physics.
Precise information concerning these orbits has provided
fruitful mathematical applications to several subjects.
The ultimate goal of this project is to measure different
quantities in the subject as well as analyzing concrete
useful answers, and computations.